REU Site: An Inclusive Research Experience in ALpine Meteorology (REALM)

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on mountain meteorology and provides a unique opportunity to receive professional development, conduct individual research projects, visit multiple field sites, and attend a national scientific conference.  The students will develop skills in science communication, data analysis, weather prediction, and computer coding through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future alpine challenges such as fire weather.